Mathematical Sciences: Geometric Function Theory

Work will be done on problems related to geometric function theory. This expression refers to the analysis of univalent analytic functions of a complex variable by means of their geometric mapping properties. Much of the planned work pursues new directions which have developed in the field since the resolution of the Bieberbach conjecture in 1984. One direction concerns the nature of the logarithmic coefficients of a univalent function. Estimates of their sums and weighted sums played a crucial role in the above mentioned result. But best- possible inequalities were not obtained. Work will be done in seeking the sharpest forms for these coefficients. If this can be resolved it will provide a solution to the still unsettled problem of estimating consecutive coefficients of univalent functions. A second thrust will be made in the direction of coefficient regions: analyzing finite sequences of coefficients and the n- dimensional sets they fill out. One specific goal is to demonstrate that these coefficient regions (actually, their convex hulls) have no ridges or spires. This will be accomplished by demonstrating that a univalent function which is extreme for two or more linear functionals must reduce to a rotation of a fundamental extremal function known as the Koebe function. Work will also continue on questions arising in harmonic rather than analytic mappings. There are natural applications to minimal surface theory in such studies. The principal investigator is particularly interested in the growth and distortion of such maps. Although there are a number of interesting questions worth considering, emphasis must be placed on the development of an effective variational method within the various classes of mappings. Some progress has been made toward this end via the Poisson representation of harmonic functions. Applications of this work are made to potential theory and grid design in numerical solutions of partial differential equations.